Fracture Problems in Bonded and Tailored Materials

This is a project to study the fracture mechanics of bonded materials with particular emphasis on the interface problems. The advantages of tailored interfaces will be investigated.